Star Formation in Galaxies

Tohline 95-28424 Dr. Tohline will study stellar formation using the gravitational hydrodynamics code developed previously. Specifically, he will address three problems -- to map out the critical states at which protostellar accretion disks become dynamically unstable to gravitational fragmentation, to examine the dynamical stability of ellipsoidal or dumbbell-shaped equilibrium structures with nontrivial internal motions, and to examine the evolution of warped HI galaxy disks to determine the extent to which the disk settling process is connected to the global process of star formation. ***